Computation and Complexity at Higher-Types

A higher-type function is a function that takes as arguments, or
produces as results, other functions. Higher-type functions have
proven to be valuable tools in both theoretical and practical work
in programming. Indeed, higher-type constructs (e.g., classes,
components, modules, etc.) pervade contemporary computing. There
is a great deal of useful theoretical work in support of reasoning
about the correctness of programs that make use of higher-order
features. In contrast, there has been relatively little theoretical
work in support of reasoning about the performance (e.g., time and
space usage) of such programs. It is clearly a great folly to
ignore correctness in program development, but it is nearly as great
a folly to ignore performance. Thus there is a serious gap in the
scientific underpinnings of programs that use higher-type
features---even benchmarking a higher-type procedure is problematic
in the absence of a theory to help interpret what the results mean.

Higher-type complexity theory extends the general program of
computational complexity to a higher-type setting. This project
proposes the investigation of several topics in higher-type
complexity theory, particularly its relation to the recent results
on realizer models of higher-type computation. These topics
include:

1. Continuity and feasible computation. The (Scott) continuous
functionals of finite type are a key object of study in programming
language theory. There are examples of continuous functionals of
finite type that are arguably feasibly computable, but do not fit
within prior notions of higher-type feasibility. This project
proposes use an appropriate polynomial-time version of Kleene's
associate/realizer framework to develop and investigate notions of
feasible computation in the context of the continuous functionals.

2. Prompt fixed points. Various sorts of fixed points are another
key tool in the theory of programming languages, especially in
explaining forms of recursion. The project proposes to explore
certain form of feasible, or prompt, fixed points so as to provide a
general context for recent work on feasible higher-type recursions.

3. Efficient programming systems for SR. The sequentially realizable
functionals (SR) is another class of functionals that have been the
focus of some important in programming languages theory. A key
question about SR is whether there is a complexity-theoretically
reasonable programming language for the class. The PI has a partial
negative result related to this. The project proposes to extend
this work.

4. Maximal notions of higher-type computation. The project proposes
to show that the (effective) continuous and the (effective) SR
functionals both satisfy a structural maximality property amongst
higher-type notions of computations.